Mathematical Sciences: Advanced Training in Modern Analysis

This award to Professors Arveson and Wolf is made under the Mathematical Sciences Research Group initiative. It will support postdocs and graduate students in Modern Analysis at the University of California at Berkeley. The research supported by this award will deal with various aspects of Modern Analysis including the representation theory of Lie groups, the theory of operator algebras, and ergodic theory. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics. The theory of operator algebras begins with the notion of operator, which can be thought of as finite or infinite matrices of complex numbers. Special types of operators are often put together in an algebra, naturally called an operator algebra. These abstract objects have a surprising variety of applications. For example, they play a key role in knot theory, which in turn is currently being used to study the structure of DNA, and they are of fundamental importance in noncommutative geometry, which is becoming increasingly important in physics. Ergodic theory in general concerns understanding the average behavior of systems whose dynamics is too complicated or chaotic to be followed in microscopic detail. Under the heading "dynamics can be placed the modern theory of how groups of abstract transformations act on smooth spaces. In this way ergodic theory makes contact with geometry in its quest to classify flows on homogeneous spaces.